Meeting the NAE Grand Challenge: Personalized Learning for Engineering Students through Instruction on Metacognition and Motivation Strategies

This engineering education research project seeks to advance personalize learning, one of the National Academy of Engineering's Grand Challenges, by creating resources to develop self-directed, life-long learning. The project is based on research in learning styles, motivation, life-long learning, and self-regulated learning. The project identifies four characteristics of life-long learners, and seeks to develop these characteristics through on-line learning modules, having students create learning materials, and performing research on the effectiveness of these interventions. Since life-long learning is an outcome required by most higher education accreditation agencies, development of these resources may be widely adopted, and thus have potentially large impact in higher education.